A Clearinghouse on Natural Hazards Research and Applications

This award is for renewed support for the Natural Hazards Research and Applications Information Center at the University of Colorado in Boulder. The Center monitors and disseminates hazards research information to multiple users--administrators, practitioners, policy makers, and scientists. The Center publishes and distributes the Natural Hazards Observer to over 9,000 subscribers six times a year, and publishes monographs, working papers, bibliographies and special publications. It holds an annual workshop involving users and producers of hazards research, and it provides information on a day-to-day basis in response to inquiries. The Center conducts modest research activities relating to societal response to natural hazards and it supports researchers throughout the nation as they carry out "quick response" studies of specific hazard events.